Molecular Phylogenetic Study of Apiaceae Subfamily Apioideae

9407712 Downie The "umbellifer" group of plants, including economically and pharmaceutically important plants such as carrots, parsnips, celery, anise, caraway, coriander, cumin, fennel, dill, parsley, and many toxic and medicinal plants, has attracted interest and study for centuries. Despite this attention, fundamental disagreements persist regarding precise delimitation of genera and tribes in the family Apiaceae subfamily Apioideae. Existing taxonomic treatments constructed largely on the basis of morphological and anatomical characters give contradictory interpretations of relationships, and many suprageneric taxa are maintained largely on considerations of tradition and convenience. Dr. Stephen Downie of the University of Illinois will bring molecular data from chloroplast and nuclear DNA to bear on genus and tribal level taxonomic problems in the subfamily. Detailed restriction site mapping of the entire chloroplast genome and comparative nucleotide sequencing of the nuclear ribosomal DNA internal transcribed spacer regions will be used to provide a robust phylogenetic framework for the group. Within this framework, hypotheses about non-DNA character evolution can be interpreted and the systematic value of such characters evaluated. The DNA results obtained in this project will provide the first modern phylogeny of the Apiaceae subfamily Apioideae. These results will be an important reference for taxonomists, plant breeders, ecologists, and pharmacologists as well as evolutionary biologists interested in the interactions of umbellifers with their associated insect herbivores. Future taxonomic and evolutionary studies of the plants will benefit from this robust phylogenetic analysis.